The Emergence of Modern English Syntax

Kroch
99-05488

ABSTRACT

The Emergence of Modern English Syntax

The aims of this project are (1) to create an electronic corpus of 1.5 million
words of early Modern English text and (2) to use this corpus to improve our
understanding of the syntactic changes that characterize the transition from
Middle to Modern English. The proposed corpus will contain, in addition to the
texts themselves, the grammatical information necessary for extensive
syntactic analysis. The corpus will be compatible in format with the existing
1.25 million word Penn-Helsinki Parsed Corpus of Middle English (PPCME2) and
with the York Parsed Corpus of Old English currently under construction. At
the end of the project scholars will have available in annotated electronic
form a continuous sample of historical English from the earliest written texts
to 1700. Among the linguistic changes that the early Modern English corpus
will allow us and other scholars to address are: the loss of verb-second word
order, which goes to completion in the early Modern period; the loss of
so-called ``verb-to-INFL raising'', including the rise of periphrastic 'do';
and the rise of the modern English passive. In addition to its role in
facilitating grammatical analysis, one major effect of the English corpus on
future linguistic investigations will be to permit scholars to use statistical
methods to study empirically the temporal dynamics of syntactic change.